Computer Configured Calculus Classroom

Monmouth College is establishing a computer configured classroom for teaching calculus. The ACM/GLCA Calculus Reform in Liberal Arts Colleges and other calculus reform projects have produced materials which make use of mathematical software. The Monmouth Calculus Classroom is providing an setting designed to use these materials in a cooperative learning environment with groups of two to three students sharing 15 networked PCs. Students are able to interact with Calculus as the classroom is used in one of three modes. In a Lecture Mode, the professor is able to show examples to reinforce concepts and demonstrate solutions to problems as students observe the output on their monitors. The Interactive Mode allows students to experiment and interact with material while the professor supervises their work by walking around the classroom or from the control station. In the Reverse Control Mode, students share their discoveries with the class as the student workstation assumes the role of the control station. Additionally, the classroom is used as a mathematics laboratory in an Independent Mode. This project is providing a student centered learning environment which utilizes the capabilities of mathematical software. Equipment includes IBM/compatible 486 student workstations and one control station, a network server, Novell Netware 386, a LAN bridge, Mathematica, Microsoft Windows, and an enhanced version of LANschool.